Behavioral Actions of Neuropeptides

9319633 Moore This research project focuses on the mechanisms by which steroid hormones interact with peptides in the brain. We know that peptides in the vasopressin/oxytocin peptide family are potent modulators of reproductive behaviors and that the behavioral actions of these peptides frequently are dependent on prior exposure to androgen. But exactly how and where androgens and these peptides interact remains largely unknown. The proposed research will use an amphibian model system to identify which neurons in the brain contain androgen receptors (can respond directly to this type of steroid hormone) and which neurons synthesize these peptides and, also to investigate site-specific and gender-specific effects of steroid hormones on the genes for these peptides. Information gained from these studies will help to develop generalized models about the molecular control of brain functions and behaviors. ***